Marine Diatom-Parasite Relationships in Upwelling Systems

A recent global survey of surface ocean waters revealed that microbial parasites comprise half of the eukaryotic plankton diversity and suggested that biological interactions, including parasites, play an important role in the ecology of many types of microscopic algae, which are the base of the ocean food web, but not diatoms. Diatoms are among the most abundant microalgae, particularly in upwelling areas where nutrient-rich deep currents feed the ocean's surface and support the world's greatest fisheries. Yet this survey did not investigate high-productivity regions, leaving a significant knowledge gap. Diatoms may be successful in upwelling regions because they evade predators and parasites, but it seems more reasonable that they, like all other microalgae, also have biological enemies. In this study, the researchers use a large set of available samples from upwelling regions to investigate the effect of parasites on the proliferation of diatom communities and resulting primary production. The project supports a graduate student and provides hands-on research experiences for high school and undergraduate college students. The study data are also integrated into courses taught by the principal investigator.

The discovery that half of the eukaryotic diversity in the Tara Oceans sequence database belongs to putatively parasitic microbes implies a revolution in our understanding of biological control of primary production. Ecosystem models are only beginning to incorporate the effect of viruses on production and community composition, but eukaryotic parasites add yet another dimension with potentially vast biogeochemical implications. While viral predation is generally thought to divert material flux away from grazers and into the dissolved organic carbon pool, increasing community diversity and microbial biomass, phytoplankton biomass diverted into parasite biomass becomes available to grazers. Experimental determination of parasite activity is difficult in natural systems, so most of the evidence for diversity, abundance, and host interactions of eukaryotic parasites is based on DNA sequence data. The Tara Oceans database suggests that diatoms have very few biotic interactions, leading to a stronger dependence on bottom-up factors (e.g., nutrients). However, this database did not represent high productivity upwelling regions. This project addresses two hypotheses: 1) diatoms in highly productive episodic upwelling systems are involved in host-parasite interactions that can be identified in co-occurrence networks during blooms; and 2) the community composition and abundance of host-parasite pairs vary over the course of the bloom in a manner consistent with density dependence on the host. In this project, abundance, diversity, and dynamics of parasites in upwelling systems are investigated by tag sequencing, metagenomics, and targeted qPCR of diatom-parasite pairs identified from archived samples from diatom-dominated upwelling systems (California Current, Eastern Tropical Pacific), the North Atlantic Spring bloom, and from two mesocosm experiments of diatom blooms induced by inoculation of surface seawater into nitrate-rich Monterey Bay seawater. Biogeochemical parameters (nutrients, primary production, nitrate assimilation, etc.) for those samples are available. In addition, the research team is using the outputs of the bioinformatics analysis in network and time series analysis to discover links among hosts and parasites.